Fallout of Particles From Explosive Eruption Columns and Other Convective Plumes

This grant will allow the PI's to continue their research into the behavior of particle-laden convective plumes from volcanoes, with additional fluid dynamic experiments and new studies of the Tambora 1815 eruption deposits. New fluid dynamic experiments will be conducted to look at 1) coignimbrite-type plumes generated off of sediment gravity flows, 2) the factors which control the style and transitions of two-phase plume collapse, and 3) the role of entrainment in affecting particle fallout and the generation of dilute gravity flows at plume edges. New field studies will be carried out on the distal Tambora 1815 tephra fall to examine the grain size, component abundances and distribution. The data will be used in conjunction with crystal/glass fractionation studies of proximal pyroclastic flows to characterize the generation and dispersal of the large co- ignimbrite ash component of this eruption.